U.S.-Brazil Collaborative Research in Cummutative Algebra, Algebraic Geometry and Associated Computation

This award supports cooperative research in algebra, geometry and computation between David Eisenbud of Brandeis University and Aron Simis of the Universidade Federal de Pernambuco in Brazil. The subjects of collaboration are: 1) Special Determinantal varieties, 2) Rees Algebras, 3) Computational Methods, and 4) Weierstrass Points. The first two subjects will make heavy use of computations made using a highly efficient computer algebra system oriented toward commutative algebra and algebraic geometry. In addition to the work on these two projects Eisenbud and Simis will do collaborative work on Macaulay development, using some of the techniques that Simis has developed for his projects. In addition, Rio is a center of work on Weierstrass points of curves. The principal investigators on this project will receive support for a graduate student as well as some equipment. These are both strong mathematicians who have each made substantial contributions to commutative algebra and algebraic geometry. The problems they pose to work on are central and important.